The Language of Change: A Project to Rejuvenate Calculus Instruction

In a one year planning grant, a group of mathematicians led by Andrew Gleason of Harvard University and from a broad spectrum of institutions/regions will design calculus syllabi outlines. They will investigate the use of computers/calculators in opening up new topics and new ways of teaching. They will completely rethink the goals and content of calculus courses; establish closer collaboration with representative of client disciplines; plan the creation of tests; and plan the development of materials to be used in workshops on pedagogy. The team consists of mathematicians from Harvard University, University of Arizona, Colgate University, Haverford College, University of Southern Mississippi, Stanford University, Suffolk Community College, and Chelmsford High School. The PI Andy Gleason, a research mathematician, is a member of the National Academy of Sciences and a former President of the American Mathematical Society. The co-PI Deborah Hughes has designed and oversees the quantitative reasoning and calculus courses at Harvard. Tom Tucker of Colgate University, an established leader in calculus reform, is also on the writing team. He authored the content report of the Tulane Conference and has chaired the College Board's Advanced Placement Calculus Committee.